Mathematical Sciences: NSF Young Investigator

This research, supported by a National Science Foundation Young Investigator award, focuses on the development of degenerate pseudodifferential operators specially adapted for the analysis of degenerate elliptic and parabolic problems in geometry. Specific applications include Hodge theory and index theory on noncompact and singular spaces, analysis of minimal surfaces with singularities, and analysis of the singular Yamabe problem. The National Science Foundation Young Investigator award recognizes outstanding young faculty. This award recognizes the recipient's strong potential for continued professional growth as a research mathematician and for significant development as a teacher and academic leader.